Collaborative research: Non-homogeneous harmonic analysis, two weight estimates and spectral problems.

ABSTRACT.

PI's propose to concentrate their efforts on several classical problems in
Analysis and Spectral Theory that remained unsolved for the last 20--50
years, due to the lack of appropriate technical tools. Among the problems
are:

* bilipschitz equivalence for higher dimensional analogues of analytic
capacity;

* two weight estimates for the Hilbert Transform;

* well-posedness of the inverse scattering problem for the discrete
Schrodinger operator,

i.e., uniqueness of the inverse nonlinear Fourier transform;

* selected problems of noncommutative harmonic analysis

Although the problems span several different areas of analysis and
mathematical physics, our recent research revealed striking connections
between the proposed problems. To put it briefly, they all are unified by
the fact that in all of them the same type of singular kernels (usually the
Cauchy kernel) appears. Also, the problems share the same difficulty, the
kernel got "spoiled'' by multiplication by virtually arbitrary functions
(weights). Recent developments in the non-homogeneous harmonic analysis,
which treats exactly this type of situations, made successful solution of
the proposed problems plausible.

Harmonic analysis investigates complex processes by representing them as a
sum of elementary ones (sinusoidal waves, wavelets) with well understood
behavior. A central part of modern harmonic analysis deals with "singular
integral operators" of one type or another. Such operators are pervasive in
the scientific landscape: they turn up in mathematical physics, probability,
engineering, image processing, etc. While the theory of singular integral
operators is now well developed (starting with works of Calderon and Zygmund
and continued by numerous researchers after them), it deals with the
operators defined on a nice "smooth" set, like the usual Euclidean space.
However, in many problems one needs to investigate such operators on a "bad"
set, like surfaces with singularities and even on more pathological sets.
The non-homogeneous harmonic analysis was introduced by the PI's to deal
exactly with such situations: recent solution by X. Tolsa of the famous
subbaditivity problem for the analytic capacity is one of the most
impressive applications of this PI's theory of nonhomogeneous analysis. PI's
propose to attack several classical problems, where the framework of the
non-homogeneous harmonic analysis appear naturally.